Social Influence Factors in Group Brainstorming

9319999 PAULUS ABSTRACT Groups in organizations and industry often meet to generate ideas about important problems or issues. Sometimes such groups use brainstorming procedures in which they try to generate as many ideas as possible without concern for quality in a noncritical atmosphere. It is presumed that such an approach will yield both large numbers of ideas and a number of high quality ones. However, research has demonstrated that brainstorming groups generate fewer ideas and fewer high quality ideas than a comparable number of individuals brainstorming alone. Recent studies by the investigator have provided evidence that social influence factors may play a critical role in the performance of interactive groups. There is a tendency for individuals in interactive groups to match each others' performance. In laboratory groups with previously unacquainted members, there also appears to be a tendency for the low performing members to have a greater impact than high performing ones. The social influence model suggests that the poor performance of brainstorming groups results in part from their tendency to develop low performance norms or standards. On the other hand, the presence of productive group members may stimulate the other group members to be more productive. In several experiments using brainstorming groups of four individuals, the ability of two of the participants to generate ideas will be varied. In some conditions these two participants will be able to generate many ideas, and in other conditions they will be able to generate only a few ideas. It is expected that the variation in rate of co-worker activity will influence the activity level of the other participants during the brainstorming session as well as in a subsequent session with new participants. This series of studies will increase our understanding of the processes involved in group brainstorming and group task performance in general. It is likely that the social processes observed in group brainstorming will occur whenever group members combine their intellectual resources with those of others in an attempt to achieve some product or goal. Since much idea generation in science and industry involves group interaction, this series of studies will provide important information about the factors that influence both the productivity and creativity of such groups. The results of this research may suggest ways to enhance the effectiveness of groups on such tasks.